Global Paleointensity of Earth's Magnetic Field from Submarine Basaltic Glass

Tauxe 9526533 The PI's propose to continue their investigations into the origin of magnetite and magnetic remanence in submarine basaltic glass and to acquire paleointensity data for a globally distributed database throughout the Cenozoic. They will carry out rock magnetic studies and laboratory synthesis of basaltic glasses in order to further understanding of the origin of the magnetite that carries the magnetic remanence in submarine basaltic glass. This research has far-reaching consequences for understanding the nature of the earth's core and generation of the geodynamo, and for reconstructing earth's geomagnetic field history.